Acquisition of Advanced Microscopy Equipment

This group of investigators proposes to purchase an electron microscope and a confocal light microscope. The electron microscope will be used particularly for the study of frozen hydrated viruses and related specimens. The confocal microscope will be used in the study of cell substructure.